RUI: Genetic Relation of Neurotransmitter Choice

To function correctly in the nervous system, each nerve cell must produce an appropriate neurotransmitter, the chemical it uses to communicate with other nerve cells. Little is known about the mechanisms that govern this choice within developing nerve cells. The work proposed here will identify genes that control neurotransmitter choice, the decision of a neuron to produce a specific set of proteins that synthesize and handle a specific neurotransmitter. Since the same neurotransmitters are used by organisms throughout the animal kingdom, the same types of genes probably regulate neurotransmitter decisions in simple and complex organisms. Therefore, this problem will be studied in a simple organism which is readily amenable to genetic and molecular analysis, the nematode. We can easily mutate the genes of these animals and observe the results of such mutations. By isolating and analyzing mutants that lack the neurotransmitter serotonin, genes that are required for the specification and function of serotonin containing neurons can be identified. If genes are identified that control neurotransmitter choice, it is very likely similar genes control such decisions in higher organisms.